The Multiphase Gas in Galaxies, Groups of Galaxies and Clusters of Galaxies

The gas in and between galaxies can be cold, warm or hot. It is important to understand how energy flows through such multiphase gas. To make progress, the team will inventory the multiphase gas in galaxies, groups of galaxies and clusters of galaxies. They will use radio, sub-millimeter, optical and X-ray observations for the inventory. The observations will be used to test models of energy flow. Senior team members will train junior team members. The team will engage with students from underrepresented minorities who attend high schools in underserved areas of Alabama.

The team will use observations to study the multiphase gas in the dense central regions of galaxies, groups of galaxies, and clusters of galaxies, and in the trails of gas pushed out of galaxies as they orbit inside clusters of galaxies. Their goals are to investigate the conditions for precipitation, the efficiencies of star formation, the relationships between the gas in different phases, and the ratios of atomic gas to molecular gas.